Organic Molecular Thin Films: Interface Electronic Properties

This project addresses fundamental issues related to the electronic structure of organic films and interfaces. Materials to be investigated are pi-conjugated small molecules that are principal ingredients of vacuum-deposited organic thin film devices. The goal is improved understanding of the electronic structure of organic molecular interfaces and of the behavior of these interfaces in devices, leading to more predictive and accurate modeling. The studies involve a combination of surface and interface spectroscopy techniques: photoemission and inverse photoemission spectroscopy (PES, IPES), scanning tunneling spectroscopy (STS), internal photoemission, Kelvin probe-contact potential difference (KP-CPD) and interface transport measurements. Collaborations are established in the areas of organometallic chemistry and quantum chemical calculations on materials and interfaces.
%%%
These studies are expected to provide improved fundamental understanding of organic films and interfaces which are critical areas important to the development of organic materials based light emitting diodes and related devices with greater performance and efficiency for applications in electronics and photonics. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area.
***